Development of a Retinal Readout System

This is a project to develop a "Retinal Readout System" that will allow the simultaneous detection of signals from hundreds to thousands of retinal output neurons while the retina is stimulated by dynamic visual images focused on the input neutrons. The signals from the output neurons will be detected in real time, from a single living retinal preparation, with all spatial and temporal correlations among the signals recorded. The Retinal Readout System will be based in part on the silicon microstrip detector technology and expertise developed to study short-lived particles in high energy physics experiments. The work will be carried out by an interdisciplinary team with expertise in high energy physics, neurobiology, nanofabrication, and VLSI design.